Penrose Conference on The Argentine Precordillera- A Laurentian Terrane?

This actions provides partial support for a Penrose Conference entitled The Argentine Precordillera-A Laurentian Terrane the be held in San Juan, Argentina during October, 1995.